The Structure, Design and Application of M-band Symmetric Wavelets and Filter Banks

The wavelet transform with symmetric basis functions is emerging as a next- generation standard for still-image compression. Wavelet methods outperform the current JPEG standard at low bitrates, and degrade gracefully with decreasing bitrate. The new M-channel symmetric wavelets are used in image and video coders, with particular attention to quantization strategies and motion compensation. This research is addressing the theory, design, and application of orthogonal and biorthogonal linear-phase M-channel filter banks and M-band symmetric wavelets. Multirate filter banks are the fundamental building blocks for subband and wavelet decompositions, as well as frequency-domain/time-domain multiplexing. Theoretical questions being addressed by the research include the structure of linear-phase M-channel filter banks and wavelets, including a comprehensive theory of permissible lengths, minimal structures for parametrization and fast computation, and mappings for two-dimensional signal processing. Criteria for wavelet filter design are also being addressed, including vanishing moments, smoothness and nonnegativity of the scaling function, and unequal length filters. The investigators are studying applications of the above to perceptually-based data compression of image, video and seismic data, multicarrier modulation, and multiscale feature detections. They are also investigating the use of the M-band wavelet transform for multitone modulation. The frequency partitioning properties of the M-channel filter bank enable high efficiency for channels such as twisted-pair copper wire and hybrid fiber-coax, with reduced susceptibility to narrow-band interference.